Monte Carlo Treatment of Atomic Gases - Low-Dimensionality and Impurities

Variational and diffusion Monte Carlo techniques are used to address the effects of correlation in ultra-cold Bose gases. The objective is to understand how these effects change from one, to two to three dimensions. Effects of impurities in the gases will also be addressed.